Probabilistic Networks for Automated Reasoning

This proposal seeks to extend the capabilities of probabilistic networks as the basic mechanism of representing and managing uncertainty in automated reasoning applications. Extensions include the development of distributed inference schemes for the classification and interpretations of objects and scenes, the development of enhanced diagnosis systems based on distributed computation, the formalization of causation and relevance and the mechanization of qualitative non-monotonic reasoning based on sound probabilistic semantics.